RUI Forty Years of Coral Reef Change in the Caribbean

Healthy coral reefs help support fisheries, tourism, coastal protection, and marine biodiversity, making their decline an important environmental and economic concern for coastal communities. Coral reefs in the US Virgin Islands are in crisis, with coral populations declining to persistently low abundances. While the causes of coral mortality are well documented, little is known about why depleted populations fail to recover. This project draws on four decades of long-term reef monitoring to investigate the potential ecological mechanisms that prevent coral populations from rebuilding. This project examines how disturbances ripple through reef communities, whether corals are becoming trapped in a low-abundance state, how recruitment and settlement might be failing, and whether the loss of sea urchins, and shifts in algal symbionts are contributing to stalled recovery. By combining fieldwork with advanced time-series analyses, this project will generate new ecological understanding on contemporary reef dynamics while training students, supporting public outreach and ensuring decades of reef monitoring data are freely accessible.

This project investigates the mechanisms maintaining persistent low coral abundance on reefs in the US Virgin Islands, leveraging four decades of continuous monitoring to test six integrated hypotheses within a hierarchical ecological framework. Despite extensive knowledge of the disturbances driving coral mortality, the ecological processes preventing population recovery remain poorly understood. Using multiple long-term study sites within a marine protected area, this project extends a 39-year coral reef time series and applies wavelet analyses to identify temporal dynamics in community structure. Through fieldwork and analysis, this project investigates the following: (i) convergence of reef communities to a stable low abundance state, (ii) spatial structuring of community dynamics and the portfolio effects that buffer against further decline, (iii) intensification of recruitment bottlenecks and the transition to settlement failure, (iv) the role of declining echinoid populations in limiting grazing halo formation and subsequent coral settlement, (v) exposure of rare coral populations to Allee effects through occupation of novel environments, and (vi) shifts in the Symbiodiniaceae complement of remaining corals and their role in maintaining low-abundance communities. Collectively, this project advances ecological theory on alternative stable states, population dynamics and community resilience in reef systems, while providing robust data to inform management of degraded coral communities.